CHREC -- The NSF Center for High-Performance Reconfigurable Computing

High-performance computing (HPC) has come to the forefront as a dominant field of technology for the advancement of science and commerce. The Industry/University Cooperative Research Center for High Performance Reconfigurable Computing at George Washington University will investigate, develop, and evaluate new concepts, methods, infrastructure, and tools in reconfigurable HPC, from building-block devices to infrastructure to applications, and advance these technologies through research and education for the benefit of Center members, students, and the discipline at large.